Engineering/Physical Science Second Year Calculus and Differential Equations: A Pilot Project

Students in "fourth semester calculus", differential equations and linear algebra, are benefiting from a revised curriculum that presents the underlying mathematics by introducing physical problems which require this mathematics for their solution.